A History of Large-Scale Environmental-Engineering Projects in Russia

General Audience Summary

This project uses historical methods to evaluate the extent and relative costs of Russian nature transformation activities from 1900 to the present. It is situated at the intersection of history of science and technology on the one hand, and environmental history on the other. It will study various projects embraced by Russian leaders to transform nature in the effort to improve economic performance, military preparedness, agricultural production, and industrial growth. Such projects include the building of huge hydroelectric-power stations, irrigation systems, transport and water transfer canals, and the draining wetlands. Many of the projects had significant social and environmental costs, such as the loss of hundreds of thousands of prisoners who were forced into the Stalinist gulag laborers in large-scale public works projects; and many ecosystems in Russia continue to suffer degradation from the projects to this day. The project is relevant to contemporary issues; under Vladimir Putin, Russia has again embraced many large scale, and potentially environmentally unsound projects. By considering the way in which Russian officials responded to the public in areas of critical technological choices, the project will shed light on the keys to reaching proper decisions about whether and where to pursue major pubic works projects, and how to balance environmental risks with the public good.

Technical Summary

This study will contribute to understandings of human-nature interactions in comparative perspective, and of the influence of political, ideological, cultural, financial, and other factors on these interactions. Due to the closed nature of Soviet and Russian society, little is known of the motivations for Russian nature transformation projects, nor the extent of their short- and long-term costs. Nor have specialists considered at length the evolution of scientific ideas and concepts used in these projects. In addition, they have been little compared with other such efforts, for example, massive hydroelectricity projects in Brazil, China and India, or water basin transfer projects in the US, South Africa, and Australia. The study will enable more complete comprehension how the sciences and engineering connected with the projects developed over time. It will enable better comprehension of the way in which governments and citizens come together to carry out massive public works projects, how funding evolves, and the nature of the scientific and engineering organizations who undertake them. It will also reveal something of the interaction between scientists and the public, and not only in the former Soviet Union, but in such transitional regimes like Russia. Finally, it will provide awareness of the costs and benefits of various projects advanced to ensure material comfort, safety, and productivity of citizens.